MIE: Center of Excellence for Native Americans in Science, Engineering and Mathematics Planning Proposal

9355491 Bowen Oklahoma State University, in collaboration with seven two-year, Native-American-serving colleges, Connors State College, Northeastern Oklahoma City, Oklahoma State University-Okmulgee, Rogers State College and Tulsa Junior College, requests support to plan for the establishment of a center of excellence to increase the recruitment, advancement, and graduation of Native American students in baccalaureate science, engineering and mathematics (SEM) degree programs. These eight institutions of higher education are already major contributors to the SEM "pipeline" for these students and provide SEM education to the thirty-eight federally recognized tribes in Oklahoma. Each of these institutions has well established relationships with tribal governments in Oklahoma. They operate many human-resource- development projects focused on the 252,420 Native Americans living in Oklahoma. We propose to plan for this new center by an exploration process with the Native American communities of Oklahoma and elsewhere in the nation to identify those activities that will be most effective in serving the needs of Native Americans, establish governance for the center to include tribal and community representation along with industry and higher education, and form an external advisory committee of Native American SEM professionals. Central to this exploration process will be a planning conference to be attended and led by Native American SEM professionals, faculty and administrators, students and parents, tribal officials and other community leaders with representative from business, industry and government. The outcome of this conference will be a plan for the center designed by and for Native Americans. The outcome of this conference will be a plan for the center designed by and for Native Americans. The center will be executed by the proposing institutions of higher education, but will be governed, operated and evaluated by Native Americans with shared respons ibility for quality control.